RIA: Expert System for Water Distribution Infrastructure Strategies

This project will analyze and develop requirements for a knowledge-based expert system for water distribution strategies. The study will include consideration of Bayesian Analysis Technique, Cox regression model and integration of hazard impact assessment modules at a local level.